Toward Scalable Software Engineering Disciplines

9311702 Weide Zweben Ogden This research addresses the technical problems impeding the development of software systems as assemblages of off-the- shelf reusable components. Substantial progress has been made in defining component engineering principles and in developing a collection of interoperable components. Each component is designed for maximal reusability and, before inclusion in a component library, is subjected to quality control procedures by which it is certified to have certain properties: correctness with respect to a formal specification, freedom from storage leaks, an essential level of efficiency, etc. The purpose of a component's certification is to give prospective clients critical assurance that the component is truly suitable for reuse. The primary goals of the work are to: * Identify specific properties for which local certifiability is essential or advantageous to the process of obtaining high-quality software systems from high-quality components. * Determine and state precisely those characteristics that a client program and the other components it employs must possess, in order that locally certified components can be guaranteed to behave as advertised in that client's context. * Investigate specific techniques for the local certification of various important properties of software. ***